On-line X-ray Scattering for Emulsion Polymerization Monitoring (Self-Sufficient Partnership with Industry/Univ. Cooperative Research Center for Process Analytical Chemistry

9418532 Kowalski The Industry/University Cooperative Research for Process Analytical Chemistry at the University of Washington studies mechanisms and instruments for the control of chemical and biological processes. The Center continues to meet the renewal criteria of the Industry/University Cooperative Research Centers Program. The reviewers were asked to review the Center under the criteria for evaluation of I/UCRCs, as well as a specific research project on an interdisciplinary effort to develop new methodologies for monitoring and control of the processing and quality of emulsion polymerization based on small angle x-ray scattering. This award provides funding for one year under the "Self-Sufficient Partnership for Research" Program to the University of Washington I/UCRC for Process Analytical Chemistry. Additional funding is provided by the U.S. Department of Energy's Battelle, Pacific Northwest Laboratory to augment ongoing research and to obtain a membership in the Center. The Program Manager recommends the University of Washington be awarded $40,000 for one year. An additional $35,000 is recommended for one year with funds provided by the U.S. Department of Energy's Battelle, Pacific Northwest Laboratory.